Travel Grants for IXth International DLMPS Conference to be Held in Uppsala, Sweden, August 7-14, 1991

This grant assists in supporting the participation of philosophers of science who are invited speakers, delegates, and other participants from the US in the IXth International Congress and General Assembly of the Division of Logic, Methodology and Philosophy of Science of the International Union of the History and Philosophy of Science. This Congress is being held in Uppsala, Sweden August 7-14, 1991. This travel grant program is being jointly administered by the Philosophy of Science Association and the National Academy of Sciences.